Ultrafast Dynamics of Polymer Laser Microchemistry and Energy Transfer

Dlott The goal of this research is a better understanding of the fundamental mechanisms by which a short intense laser pulse modifies the properties of a micrometer scale spot on a polymer thin film. The processes which will be studied are laser surface ablation and laser photopolymerization. Microchemistry processes are widely used in photomicrolithography, electronics, and many other high technology industries, but due to the complicated nature of the laser-material interaction and the diversity and complexity of the materials used therein, are poorly understood at a fundamental level. Specific practical applications discussed here include laser ablation, microimage formation, laser assisted material transfer, and shock-based methods involving fast compression, shearing and smashing. The intent of this work is to go beyond the current level of understanding these processes at a technical level to develop a detailed molecular level understanding. %%% The goal of this research is a better understanding of the fundamental mechanisms by which a short intense laser pulse modifies the properties of a micrometer scale spot on a polymer thin film. The processes which will be studied are laser surface ablation and laser photopolymerization. Microchemistry processes are widely used in photomicrolithography, electronics, and many other high technology industries, but due to the complicated nature of the laser-material interaction and the diversity and complexity of the materials used therein, are poorly understood at a fundamental level.